FSML- Enhancing Data Management and Telecommunications at the Harvard Forest

Over the last ten years the Harvard Forest has developed an integrated and cross-disciplinary research and educational program involving researchers and students from across the northeastern U.S. that focuses on the response of forest ecosystems to disturbance and stress resulting from natural and anthropogenic processes. This program is structured around five approaches: (1) reconstructAve studies, (2) long-term measurement and observation, (3) experimental manipulations, (4) integration of results within our research group and collaboratively with other research groups, and (5) application of results to policy issues in natural resource management, conservation biology, and human health and environment. A ten-year plan for the renovation and construction of additional laboratories, office space, archival facilities, and housing to accommodate growing numbers of visiting scientists and students has just been completed. Critical areas for further development of the facility are data management and teleeommumcations. A development plan has been created to address these areas. This project will (1) upgrade Internet connectivity at the Harvard Forest, (2.) set up high performance file servers with large disk capacity, and (3) upgrade the GIS Laboratory. The second phase will extend full network connectivity to two buildings recently renovated for visitor and student housing, and to continue upgrades to the computers in the main facility. The improvements supported by this project will have a profound impact on visiting scientists, students, and staff, as well as virtual visitors, through improved access to the Internet, improved local connectivity, continued development of Harvard Forest resources on the Web, and a state-of-the-art PC-based GIS Laboratory. The larger research community will benefit from increased opportunities for collaboration and advances in data management that will result from these improvements.